Temperature Superconducting Tapes and Wires

9713433 Ahzi The mechanical processing of high temperature superconducting tapes and wires is modeled by: (1) developing advanced micromechanical modeling of the elastic- plastic response of compacted high temperature superconducting powders with particular applications to Bi- based oxides (BSCCO); and (2) implementing these models to simulate wire drawing and tape rolling and pressing of the oxide-powder-in-tube (OPIT) process for the fabrication of superconductina tapes and wires. The fabrication of the BSCCO superconductors (tapes and wires) produced by the OPIT process with optimal mechanical and electrical transport properties is currently limited due to the lack of understanding of the mechanical response during the densification of powder oxides. Predictive tools for the simulation and design of advanced processing methodologies for producing long wires and tapes with optimal properties are developed under this project. Physically-based models for the polycrystalline matrix fully coupled with the porosity modeling are developed. These models are based on rate-dependent plasticity and have the unique ability to predict the evolution of texturing during plastic deformation and the evolution of the relative density of the materials. For superconductors, both mechanical and most importantly electrical properties are strongly dependent on the the final texture, relative density, and on the presence of microcracks. Therefore, physically-based material models with the ability of coupling the texturing, porosity and microcracking effects provide a better understanding of the mechanical response during mechanical processing of these materials. The phenomenon of non-conformity (instability) in the sectional area of the superconducting core of rolled tapes, inherent to the rolling of two-phase composite workpiece (Ag-sheathed BSCCO) is studied using micromechanical models which account for the porosity, textural hardening (locking), and weakening due to micr ocracking in the superconducting core. The modeling and computational efforts are extended to simulate fabrication of multifilamentary superconductors. ***